Career Advancement Award: An Investigation into Methods to Support Cooperative Design

The objectives of this Career Advancement Award are to facilitate the principal investigator's career transition from industry to a university environment; enhance her research capability in computer-aided concurrent engineering; and to support exploratory work on artificial intelligence based decision support for cooperative design. The exploratory work will involve the design of a testbed for simulating and analyzing the cooperative design process and for experimenting with strategies for its decision support. The domain for this work is the simultaneous process selection and design for manufacturability of thin-walled parts. Interaction with industrial sponsors will be used to extend the work to other environments.